Transformation Field Analysis

TRANSFORMATION FIELD ANALYSIS

Abstract

The Transformation Field Analysis (TFA) is a new method for hierarchical modeling of many interacting physical processes in heterogeneous material systems. The research, will provide the following new theoretical results and applications of the TFA: (a) A rate form of the influence functions and governing equations, for applications involving changes in thermoelastic moduli of the phases. (b) Formulation of new shape functions for refinement of local inelastic deformation fields; and (c): Use of unit cell models in the context of the TFA, for refined analysis of local deformation and damage processes.